Presidential Young Investigator Award: Optical Computing

Research is currently being pursued on (a) digital optical computing; (b) reconfigurable interconnection memories; (c) neural networks; and (d) parallel computation models and computational complexity. Emphasis is placed on neural networks and parallel computation models, specifically, studying the implementation of learning algorithms, number representation including analog, digital and bipolar numbers, and new optical architectures and architectural issues such as hardware and time complexity, uniformity, and energy requirements. Some of the neural network architectures developed are being demonstrated experimentally. Finally, optical or hybrid optical/electronic architectures based on parallel computation models are being developed. These include an analysis of run-time performance of fundamental algorithms on the new architectures, hardware and device requirements for their physical realization, and experimental demonstrations of some of the architectures.